Few-Level Models in Atomic Radiation Theory

Research is directed toward the study of few level models in atomic radiation theory. The ultimate aim is a basic understanding of wave mixing processes on a microscopic level. The modeling will include two-mode interactions and will employ higher-order RWA methods and Floquet techniques. It is expected that experimental tests of our model calculations will be possible.